Dynamics, descriptive set theory, and Ramsey theory

In the project, Solecki will explore several problems whose
solutions will involve interactions of a number of areas of
mathematics: logic (descriptive set theory and elements of model
theory), topological dynamics, and combinatorics. For example,
Solecki intends to study questions concerning dynamical properties
of the homeomorphism group of the pseudo-arc. By a recent work of Irwin and
Solecki, these dynamical questions can be approached using
projective Fra\"iss\'e limits, which are dual versions of the
classical construction of Fra\"iss\'e limits from model theory.
Now, the corresponding questions about projective Fra\"iss\'e
limits can be translated to purely combinatorial problems concerning
finite objects. To solve these problems Solecki will attempt to
develop new combinatorial techniques with the guidance of analogies
with the Ramsey theory for finite structures, a classical branch of
combinatorics.

This research will not only involve applying results
from one part of mathematics to another. The expectation is that the
interactions will be mutually beneficial: the topological dynamics
question suggests a new model theoretic construction, which in turn
leads to an interesting combinatorial problem, whose solution
yields, on the one hand, a new combinatorial theorem and, on the
other hand, an answer to the original dynamical question. In a
similar manner, other parts of the project feature interactions of
descriptive set theory, model theory, topological dynamics, and
combinatorics in the study of extreme amenability, Borel equivalence
relations, and algebraic properties of isometry groups. It may be hoped that crossing boundaries of subfields of mathematics will lead to new and substantial insights.